CAREER: Passive and Active Damping Control for Large Civil Structures

The objective of this integrated education and research plan is to augment damping in large civil structures applications, via both passive and active means, to reduce structural response. The proposed research program will develop, analyze and experimentally demonstrate passive, semi-active, and active structural damping control for civil structures using smart materials and structures technology. The research builds on the ongoing research efforts at Maryland on stability augmentation, shock, and vibration control using electrorheological (ER) and magnetorheological (MR) dampers. Damping strategies will be tested on dynamically scaled three story civil structures building model currently under development.